Mathematical Sciences: Geometry and Analysis of Harmonic Maps

The principal investigator will study an area of geometry which relates both to entire space-like, constant mean curvature, hypersurfaces in the Minkowski space, and to harmonic analysis on minimal surfaces. This work will naturally extend his earlier work. Specific attention will be paid to the interplay between harmonic maps (nonlinear theory) and harmonic function theory (linear theory). Certain aspects of the deformation and rigidity of minimal surfaces will also be investigated. Mathematicians and physicists have studied the structure of invariant space-like minimal surfaces in four-dimensional space- time for several decades. Such surfaces minimize an energy function and are the Minkowski hyper-space analogues of the soap films encountered in everyday life.